The Hawaii Ocean Time Series: WOCE Component

9303094 Lukas A deep-water oceanographic station established at a site 100 km north of Oahu, Hawaii, in October 1988, will be occupied for five more years. This program is considered a component of the World Ocean Time-Circulation Experiment (WOCE) and is called the Hawaii Ocean Time-series (HOT). Hydrographic cruises will be made to the station site approximately seven to eight times per year, for intensive sampling of the biochemical and physical properties of the water column. Temperature, salinity, and dissolved oxygen will be measured and, discrete water samples will be obtained for chemical analysis. An inverted echo sounder (IES) will be maintained at the site to give continuity to the hydrographic stations and to resolve the high frequencies observed in the data for periods lower than the cruise sampling interval. In addition, as part of this program, the analysis of the data collected since 1988 will be performed. ***